III: Small: RIOT: Statistical Computing with Efficient, Transparent I/O

Recent technological advances enable collection of massive amounts of
data in science, commerce, and society. These datasets bring us
closer than ever before to solving important problems such as decoding
human genomes and coping with climate changes. Meanwhile, the
exponential growth in data volume creates an urgent challenge. Many
existing analysis tools assume datasets fit in memory; when applied to
massive datasets, they become unacceptably slow because of excessive
disk input/output (I/O) operations.

Across application domains, much of advanced data analysis is done
with custom programming by statisticians. Progress has been hindered
by the lack of easy-to-use statistical computing environments that
support I/O-efficient processing of large datasets. There have been
many approaches toward I/O-efficiency, but none has gained traction
with statisticians because of issues ranging from efficiency to
usability. Disk-based storage engines and I/O-efficient function
libraries are only a partial solution, because many sources of
I/O-inefficiency in programs remain at a higher, inter-operation
level. Database systems seem to be a natural solution, with efficient
I/O and a declarative language (SQL) enabling high-level
optimizations. However, much work in integrating databases and
statistical computing remains database-centric, forcing statisticians
to learn unfamiliar languages and deal with their impedance mismatch
with host languages.

To make a practical impact on statistical computing, this project
postulates that a better approach is to make it transparent to users
how I/O-efficiency is achieved. Transparency means no SQL, or any new
language to learn. Transparency means that existing code should run
without modification, and automatically gain I/O-efficiency. The
project, nicknamed RIOT, aims at extending R---a widely popular
open-source statistical computing environment---to transparently
provide efficient I/O. Achieving transparency is challenging; RIOT
does so with an end-to-end solution addressing issues on all fronts:
I/O-efficient algorithms, pipelined execution, deferred evaluation,
I/O-cost-driven expression optimization, smart storage and
materialization, and seamless integration with an interpreted host
language.

RIOT integrates research and education, and continues the tradition of
involving undergraduates through REU and independent studies. As a
database researcher, the PI is committed to learning and drawing from
work from programming languages and high-performance computing.
Findings from RIOT help create synergy and seed further collaboration
with these communities. To ensure practical impact on statistical
computing, RIOT has enlisted collaboration from statisticians and the
R core development team on developing, evaluating, and disseminating
RIOT.

Further information can be found at:
http://www.cs.duke.edu/dbgroup/Main/RIOT